Conference: Building Bridges: 7th EU/US Summer School on Automorphic Forms and Related Topics (BB7)

This award supports US-based graduate students and other early-career researchers participating in “Building Bridges: 7th EU/US Summer School on Automorphic Forms and Related Topics” (BB7), which will take place from August 10-15, 2026 at the Bedlewo Conference Center in Poland. The summer school explores the theory of automorphic forms, a field of study with a far-reaching impact that extends well beyond the field of number theory, and encompasses various branches of mathematics. The program provides early-career mathematicians high-level research training on cutting-edge topics, contributing to a robust and globally-connected workforce in the mathematical sciences.

The summer school will feature three intensive mini-courses, on the analytic aspects of automorphic forms, theta lifts and arithmetic aspects of automorphic forms, and the relationship between Galois representations and hypergeometric functions, respectively. The program pairs morning lectures with afternoon collaborative problem-solving sessions to bridge the gap between foundational theory and current research. This structure facilitates knowledge transfer from world-class experts to early-career researchers. To provide a permanent, open-access resource, comprehensive course notes will be published on the BB7 website, advancing the field of number theory and enhancing the technical proficiency of US participants. More information can be found on the following website: https://bb7.wmi.amu.edu.pl/